Long Range Transport Events in Plasma Turbulence and Comparison with Complex Dynamics Theory

Recent research has suggested that plasma turbulence and the associated transport of particles may also be consistent with a state of self-organized criticality (SOC). However, unambiguous identification of an SOC state for turbulence in plasmas has not been made, and existing evidence remains primarily suggestive. The universality of SOC-like systems, the ability to explain non-local phenomena and their independence of detailed mode characteristics motivate the current research effort. The primary goal of the project is to search for long-range correlation of turbulent transport events and to contrast and compare in detail experimental measurements with the predictions of complex dynamic theory. The work will be performed by a combined theoretical and experimental team, with experiments being carried out on the new Large Plasma Device under construction at the University of California, Los Angeles.